Nonsmooth Measurement Feedback Control of Genuinely Nonlinear Systems with Applications to Biologically-Inspired Systems

This proposal aims to address some of the most fundamental and challenging issues in the field of nonlinear
control. The main objectives are to develop nonsmooth feedback design approaches achieving global stabilization,
adaptive regulation and output tracking, via measurable signals, for a significant class of nonlinear systems with
unstabilizable/undetectable linearization, which cannot be dealt with by any smooth feedback, even locally. Nonsmooth
feedback designs ofer the potential to overcome certain topological obstacles that cannot be addressed by smooth
controls, for example, to globally stabilize a nonlinear system that is not stabilizable by any linear or smooth state
feedback, because the linearized system has uncontrollable modes associated with eigenvalues on the right-half plane.
The basic research components of this proposal are to design nonsmooth partial state or output feedback controllers
that achieve global strong stability and do so in a robust fashion, that is, in a manner which is not sensitive to
perturbations and parametric uncertainties in the system.
The other focal points of this proposal will be the development of a new output tracking theory for inherently
nonlinear systems by measurement feedback. The objective is to make the controlled plant track a desired reference
signal. A key feature of the classical servomechanism theory is the ability to absorb the effect of modeling errors and
to secure asymptotic tracking in the presence of uncertainties. A nonlinear analogue of these robustness properties was
developed via center manifold theory, under the assumption that the linearized system is controllable and observable,
at least partially. However, little result is known on the output regulation of nonlinear systems whose linearization
is unobservable and uncontrollable. Our preliminary analysis suggests that a new formulation to the nonlinear reg-
ulator problem is needed. Indeed, some dramatic examples in the proposal indicate that while asymptotic output
tracking is usually not possible, even locally, practical output tracking is achievable. One of important components
of this project will be to establish a general theory for global practical output tracking of nonlinear systems with
uncontrollable/unobservable linearization, in the presence of nonlinear parameterization.
The theoretical research will be complemented by several novel applications. In particular, the nonsmooth control
theory to be developed will be used to address diffcult control problems including output feedback stabilization of
underactuated mechanical systems and output tracking/regulation of antagonistic biomimetic actuation systems, by
nonsmooth measurement feedback.
Intellectual Merits: This program will not only provided a general framework for the control of nonlinear systems
with uncontrollable/unobservable linearization by nonsmooth measurement feedback, but also make a fundamental
contribution to a number of important and challenging open problems such as output feedback stabilization, output
tracking and regulation, for genuinely nonlinear systems that cannot be controlled by existing smooth synthesis tech-
niques. The proposed research will yield new insight, advance the state-of-the-art of nonsmooth control theory, and
further facilitate the development of nonsmooth design methods and their applications for a large class of inherently
nonlinear systems.
Broader Impact: The proposed research will have enormous impact on developing a new generation of nonlinear
control technologies, with emphasis on the development of computationally efficient and practically feasible nonsmooth
control tools and algorithms, for critical biomedical control applications and for achieving high-performance operation
of engineering systems (e.g. mobile robots, underactuated mechanical systems, and biomimetic or biologically-inspired
systems). Applications of the nonsmooth control methods to biomimetic systems have the potential to overcome some
fundamental diffculties in designing biologically-inspired robots (e.g. cockroach-like hexapod robots), functional elec-
trical stimulation muscles, and other man-made devices whose embedded control systems can function autonomously
in the real world, thus improving significantly performance of the first generation biomimetic systems. The outcomes
of this program are envisioned to provide new avenues for a significant improvement of operability and efficiency
of engineering and biologically-inspired systems, to create commercial or biomedical application opportunities, and
eventually to result in economic benefits.
1